Eleventh International Conference on the Application of High Magnetic Fields in Semiconductor Physics; MIT; August 8-12, 1994

9403376 Heiman Technical abstract: The 11th Conference on the Application of High Magnetic Fields in Semiconductor Physics will be held on the MIT campus August 8-12, 1994. This is a satellite conference of the International Conference on the Physics of Semiconductors taking place in Vancouver. The use of high magnetic fields is an indispensable tool for probing new semiconductor materials and structures, and has been useful in designing practical devices. The meting will have impact in areas of research on electronic, magnetic and photonic devices. It will bring together an outstanding international group of who are at the forefront of scientific research and state of the art technology. Non-technical abstract: The 11th Conference on the Application of High Magnetic Fields in Semiconductor Physics will be held on the MIT campus August 8-12, 1994. This is a satellite conference of the International Conference on the Physics of Semiconductors taking place in Vancouver. The use of high magnetic fields is an indispensable tool for probing new semiconductor materials and structures, and has been useful in designing practical devices. The meeting will have impact in areas of research on electronic, magnetic and photonic devices. It will bring together an outstanding international group of who are at the forefront of scientific research and state of the art technology. ***